Fourier Transform Infrared Instrumentation for Engineering and Environmental Science

9351321 Daniel The project will purchase an FT Infrared instrument for use in development of a new environmental sciences coop course. The instrument will be used in eight different laboratories. More than 600 students per year are expected to use the proposed instrumentation. Implementation of an Environmental Science degree will require the development of several new laboratory courses as well as the restructuring of many of our chemistry offerings for Engineers. Proposed new experiments include kinetic studies over catalysts, the identification of air, soil and water pollutants, the determination of total carbon in water and the characterization of industrial raw materials and industrial waste, as well as traditional compound characterizations. ***